Research Experiences for Undergraduates in Chemistry at the University of Notre Dame

This Research Experiences for Undergraduates (REU) Site project is in the field of chemistry. For a three-year period beginning April 1992, eight (8) undergraduate students will spend ten (10) weeks engaged in basic research under the direction of the faculty members in the Chemistry Department. A focal point of the proposed projects is the study of synthesis, structure, and dynamics at the interface between inorganic, organic, and bio-organic chemistry. A special seminar program will be included in which the students will be exposed to special topics in modern chemical research and to careers in science. This seminar program, together with participation in regular research group meeting, will also give the students experience in reporting on their own research progress and in acquiring a greater ability to communicate scientific information. The underlying aim of the overall program is to give students strong incentives for pursuing careers in the science field.